Travel: Group Travel Grant for the Doctoral Consortium of the IEEE Conference on Computer Vision and Pattern Recognition

This award partially supports the participation of students from US institutions in the Doctoral Consortium at the IEEE/CVF Conference on Computer Vision and Pattern Recognition (CVPR), to be held from June 19 to 24, 2022 in New Orleans, Louisiana. CVPR is the premier annual conference in computer vision with over 9,000 senior, junior and student participants. It is held in North America and attended by members of the international research community. The goal of the Doctoral Consortium is to highlight the work of senior PhD students who are within six months of receiving their degrees (including recent graduates), and to give these students an opportunity to discuss their research and career options with faculty and researchers who have relevant expertise and experience. The opportunity to receive advice on their research work and career plans from experts from different institutions, and with potentially different perspectives, is often not available internally at one's own institution. The project will support the career development of some of the brightest junior researchers in computer vision, contribute to the research community in general by drawing attention to an important aspect of graduate student development, potentially increasing the number of active researchers and educators in STEM, and ensure that the computer vision community, through its recent graduates, makes fast advances in solving problems that will benefit society.

Through a group travel grant, this project ensures the opportunity to participate for students at diverse institutions, including students from underrepresented groups who would otherwise not be able to attend, and enhances the visibility of this outreach program to all attendees. The award covers some of the conference attendance costs for 15-20 selected US-based graduate students. Participants and recipients of travel support are selected by the 2022 CVPR Doctoral Consortium co-chairs. Travel awards partially cover any admissible conference-related costs such as registration, airfare, lodging, and board, up to $1200. The budget also includes support for a light lunch during the Doctoral Consortium event for 60 people (student participants and mentors). This year’s Doctoral Consortium is a hybrid event (allowing in-person and remote participation), features a poster session, one-on-one or small group mentoring, and panel discussion. The Doctoral Consortium aims to have representation from a diverse group of participants in terms of gender, ethnic background, academic institution, and geographic location.